CISE Crosscutting Small: CPS: Enhancing the Security and Resilience of Cyber-Physical Power Systems Against Sophisticated Cyber-Attacks

Cyber-attacks targeting critical infrastructure have increased dramatically in recent years, posing serious risks to national security, economic stability, and public safety. Among the most vulnerable systems are cyber-physical power systems, which integrate physical grid infrastructure with digital communication and control networks. These systems are increasingly exposed to sophisticated cyber threats capable of bypassing traditional defenses. This project aims to enhance the security and resilience of cyber-physical power systems by developing advanced tools to detect and mitigate stealthy cyber-attacks that could otherwise cause widespread outages or damage. The research combines machine learning, optimization, and power system modeling to protect critical electric power grid infrastructure. Beyond its technical innovations, the project will increase participation in STEM by offering workforce development opportunities that are open to all students, with particular attention to engaging participants from a wide range of institutional, geographic, and socioeconomic backgrounds.

This project introduces a three-pronged technical framework that tightly integrates the physics of power systems with state-of-the-art computational methods. First, it uses region-based convolutional graph neural networks to detect anomalies in cyber-physical power systems by capturing spatial and temporal dynamics with high fidelity. Second, the project proposes a novel analytical framework based on convex relaxation and bound-tightening methods to identify infeasible transitions between power system operating states, thereby detecting sophisticated attacks that evade conventional detection algorithms. Third, it develops a robust convex relaxation-based state estimation method that reconstructs the true system state even in the presence of compromised data, enabling rapid isolation and mitigation of attack impacts. Together, these efforts offer a scalable, physics-aware approach to improving the cyber resilience of power grids while contributing to the theoretical foundations of optimization and system verification.